Transient Analysis of Manufacturing Systems: A Simulation-Based Transfer Function Modeling Approach for Responsive Production Planning

This award supports basic research and development of a statistical methodology for real-time prediction of output performance of manufacturing systems. The research is needed because modern manufacturing enterprises face the challenge of dynamically optimizing or re-optimizing their production plans in response to disruptions such as supplier failures, demand-forecast mismatches and natural disasters. The question they face is "which plan will lead to the best performance of the system?" The dependence of the system performance upon the production plan is nonlinear and time-dependent, and cannot be adequately quantified by the existing methods such as computer simulation and queueing analysis. The former (simulation) is time-consuming, and the latter (queueing) falls short in accuracy. To overcome these shortcomings, the proposed work integrates adaptive statistical methods, simulation and analytical queueing models, with the goal of accurately predicting the system output for any input plan in a timely manner. In this work, the input-output dynamics of a manufacturing system are described by a set of transfer function models (TFMs). The TFMs are estimated based on extensive simulation and thus they embody the high-fidelity of simulation to real systems; the TFMs are mathematical difference equations, and hence can be evaluated in real-time for "what if" analysis.

The methods and tools resulting from this work will help industrial manufacturers to build resilience into their management activities, and improve their ability to respond to and recover from disruptive events. Application of the proposed methods is not restricted to manufacturing, but can also be extended to service, communication and transportation for improved quality of management. Classroom case studies will be derived from this research and taught at both undergraduate and graduate levels. This project also includes initiatives to involve students, especially underrepresented students, in active research.